A Workshop in Plasticity and Commemorative Volume in Honor of Professor E.H. Lee

This award is made in order to provide partial support for a workshop in plasticity and an associated commemorative book to honor Professor E.H. Lee on the occasion of his seventy-fifth birthday.